Group International Travel for U.S. Participants in Foreign Astronomical Meeting; Xian, China; May 24-29, 1993

Participation by U.S. astronomers in meetings in foreign countries is becoming more and more important. Over one-quarter of the active U.S. research astronomers are working on projects in collaboration with foreign scientists. Several large foreign instruments which have unique capabilities are routinely used by U.S. astronomers. Many international scientific meetings are held in foreign countries. It is important for the continued health of astronomy in the U.S. that American scientists be able to participate in these meetings. The American Astronomical Society (AAS) will continue operation of a program of support for travel to attend foreign scientific meetings in the field of astronomy. Each year the AAS will select a series of foreign meetings of scientific importance. Applications for travel to these meetings will be accepted, and awards will be made by a selection committee which will be convened by the AAS. The program will be publicized by the AAS at its meetings and through published announcements.